What controls the isotopic signature of terrestrial organic carbon? A biomarker study of the Paleocene and Eocene section in the Bighorn Basin (WY, USA)

This award is funded under the American Recovery and Reinvestment Act
of 2009 (Public Law 111-5). Earth's climate is warming at a pace and
magnitude unprecedented in recent times, with profound (but not easily
predicted) consequences for terrestrial ecology and hydrology. Carbon
isotopic signatures are an important tool for geologists studying
terrestrial environmental change on long time scales. However, carbon
isotopic signatures can vary widely and work on modern plants reveals
both environment and community composition can be equally significant
influences. Although secular carbon isotope variations of atmospheric
carbon dioxide are certainly transferred into ancient plant carbon,
and thus soil carbon, so also are ecophysiological differences (e.g.,
phylogeny, leaf habit, water use)that modulate carbon isotope
fractionation between plant biomass and carbon dioxide and as well
as carbon from other inputs such as microbes or weathered carbon. Work
supported by this grant will evaluate the relative importance of
environment versus community composition as major mechanisms controlling
carbon isotope values and molecular signatures of terrestrial plant
inputs in the ancient soils and terrestrial sediments in the Paleocene
and Eocene of the Bighorn Basin (WY, USA) across both short term (PETM)
and more protracted (Eocene) global warming.